Presidential Faculty Fellow

9350220 Williams This research is oriented towards constraining the thermal and chemical evolution of the Earth through high pressure experiments, with an emphasis on the interaction between material properties and Earth problems. This interdisciplinary focus also characterizes the P.I.'s teaching, in which he is involved in developing thematic approaches to Earth sciences curricula.